RUI: Floral Nectar Production: Implications for Pollen Flow and Plant Fitness

Although it has become axiomatic that pollinators respond to numerous plant traits, the nature of these responses have not been studied in appreciable depth. This research is designed to investigate one such response: the collection of nectar by bumblebees. The research will determine whether natural selection can operate on plants in such a way that subtle changes in rates of nectar production might yield increases in plant fitness. Nineteen descrete, yet interrelated, hypotheses will be tested. These are designed to allow an independent assessment of reproductive output. Additionally, reproductive output will be measured in terms of both seed number and quality. Polemonium foliosissimum, a Rocky Mountain perennial herb whose reproductive biology has been intensely studied for the past decade, will serve as the study organism. Completion of the proposed project will yield more data relating to floral nectar production in P. foliosissimum than is currently available for any other taxon.